Nuclear Instrumentation and Measurement for General Physics Labs

Loma Linda University will strengthen its general physics laboratories by adding experiments on the detection and measurement of nuclear radiation. Undergraduate students from biology, chemistry, engineering, mathematics, health science, as well as physics take this course. General Physics is the only course where many of them will be introduced to the principles of nuclear radiation and measurement. Beta and gamma ray detectors and power supplies will be purchased; associated electronics will be constructed. Software will be written to integrate these experiments into the existing computer-based laboratory curriculum. The university will match the award with an equal amount of funds.